Workshop at ICSI: On Randomized Algorithms and Computation, December 17-22, l995, Berkeley, California

9531794 Luby This project funds speaker and participant costs for a workshop, titled ``Randomized Algorithms and Computation'', at ICSI, December 17 -- 22, 1995. The Workshop emphasizes applications to approximation algorithms for optimization and counting problems, coding theory with network and multimedia applications, cryptography and security, distributed computation, and derandomization of algorithms. The Workshop: (1) Brings together leading researchers from Europe, Israel, Canada and the U.S.; (2) Is being combined with the Weizmann Institute Workshop on ``Randomness and Computation'' (normally held in Israel in January); (3) Is organized in cooperation with the ESPIRT RAND Working Group. This project is a cooperative funding effort with support for European participants provided by the ESPRIT RAND-REC Project. ***